Thermal Transport in MXenes

Two-dimensional materials have received significant attention because they have unique electrical, mechanical, and chemical properties that cannot be achieved in conventional materials. A special family of these thin materials, called MXenes, is promising for energy storage, sensors, and blocking electronics interference. As technologies get smaller, faster, and more powerful, managing heat is vital to keep devices working reliably. MXenes have been researched extensively, but how heat moves through them is not well understood. This project will find the basic science needed to control heat flow in MXenes. This knowledge will enable the rational design of next-generation materials and devices with optimal thermal properties.

This research will investigate heat transport in MXene flakes, thin films, and layered structures through integrated experiments and computations. As one of the few families of two-dimensional materials with highly tunable electronic properties and surface chemistry, MXenes provide a unique platform for uncovering thermal transport mechanisms that differ fundamentally from those in other two-dimensional materials. Advanced laser-based thermal measurement techniques will be combined with first-principles modeling to quantify heat transport over a wide range of length scales and temperatures. By systematically varying film thickness, flake size, processing conditions, surface chemistry, and encapsulation, the project will determine how these factors influence both in-plane and cross-plane thermal conductivity and the resulting anisotropic heat transport. The experimental measurements and predictive modeling will establish quantitative relationships between material structure and thermal performance, providing the first comprehensive understanding of thermal transport in this emerging class of two-dimensional materials. The project will strengthen education by engaging undergraduate and graduate students in interdisciplinary research including advanced optical characterization, computational materials science, and thermal engineering, which will help prepare the next generation of scientists and engineers.